Connections to the Internet

This award is made under the high performance connections portion of ANIR's
"Connections to the Internet" announcement, NSF 98-102. Researchers at the
University of Arkansas at Little Rock (UALR) and the University of Arkansas
for Medical Sciences (UAMS), in collaboration with the University of
Arkansas at Fayetteville (UAF), have formed a consortium, ARKnet2.
ARKnet2 is to make available high bandwidth communication resources and
will develop an interstate high bandwidth connections network for
university researchers, which will have connections to a national high
bandwidth network.

The Arkansas Consortium plans to build a ATM-based ARKnet2 backbone from
Little Rock to Fayetteville. Arkansas is a member of the Great Plains
Network (GPN), which will share resources among six states that are all
qualified for EPSCoR funding. The GPN will connect ARKnet2 to its gigaPOP
in Kansas City and will provide access to the vBNS and federal agency
networks.

Research supported by the resulting network access includes: seismic
analysis, nanodimensional molecular device modeling, combustion analysis
and computational fluid dynamics, microscopy and biotechnology advances,
fetal magnetoencephalography, and studies of physiological effects of
microgravity. Collaborations will involve facilities and universities
including: NASA Johnson Space Center, University of Florida, University of
Tennessee, Old Dominion University, Yale, Louisiana State University,
Temple University, and Argonne National Laboratory.